Studies in Postwar Monetary Policy

9422584 Romer This project investigates a variety of aspects of monetary policy in the postwar United States. The first part investigates why contractionary open-market operations typically raise long-term interest rates. The research uses the Federal Reserve's internal inflation forecast and private forecasts to test the hypothesis that contractionary policy actions raise the long-term rates because market participants infer from the actions that the Federal Reserve has unfavorable information about future inflation. The research tests whether the Federal Reserve has useful information about inflation beyond what is known to market participants, whether it tends to tighten when its forecasts of inflation are higher than private forecasts, and whether private forecasts of inflation are revised upward when the Federal Reserve tightens. The research also tests whether changes in Federal Reserve policy are associated with changes in the premia for holding securities of different maturities. A second part of the project uses the evidence provided by times when the Federal Reserve interfered with banks' ability to obtain funds at prevailing interest rates to investigate the macroeconomic importance of credit market imperfections. Many theories assign an important role to such imperfections in the behavior of economic aggregates. But the fact most measures of the functioning of credit markets may be affected by other factors that influence aggregate activity makes these theories difficult to test. Since the Federal Reserve's direct credit actions were aimed specifically at credit markets, however, it is unlikely that they could have affected the economy through any channel other than through these markets. The research will therefore use the evidence provided by these actions to examine the effects of credit market disruptions on aggregate pricing behavior, investment, inventory accumulation, and other variables. Additional portions of the research will in vestigate the response of monetary policy to inflation and whether there are measures of inflation that provide prompt evidence of changes in the underlying inflation rate.